Algebra: Gateway to a Technological Future -- A Conference to be Convened in Washington, DC, November 9-11, 2006

NSF has supported many projects designed to improve student learning of algebra at all levels. The MAA will bring together approximately 50 mathematicians and mathematics educators on November 9-11, 2006, in Washington, DC, to develop an overview of this prior work, seek common principles that support student success, and provide guidance for the future. Participants will be drawn from leaders in the mathematical sciences community with proven records of prior success. The conference will support the goal of developing a report with a national perspective, and serve to stimulate interest in the report by engaging key members of the community.